CPS:Medium:Hybrid Systems for Modeling and Teaching the Language of Surgery

The objective of this research is to develop new principles for
creating and comparing models of skilled human activities, and to
apply those models to systems for teaching, training and assistance of
humans performing these activities. The models investigated will
include both hybrid systems and language-based models. The research
will focus on modeling surgical manipulations during robotic minimally
invasive surgery. Models for expert performance of surgical tasks will
be derived from recorded motion and video data. Student data will be
compared with these expert models, and both physical guidance and
information display methods will be developed to provide feedback to
the student based on the expert model.

The intellectual merit of this work lies in the development of a new
set of mathematical tools for modeling human skilled activity. These
tools will provide new insights into the relationship between skill,
style, and content in human motion. Additional intellectual merit lies
in the connection of hybrid systems modeling to language models, the
creation of techniques for automated training, and in the assessment
of new training methods.

The broader impact of this research will be the creation of automated
methods for modeling and teaching skilled human motion. These methods
will have enormous implications for the training and re-training of
the US workforce. This project will also impact many diversity and
outreach activities, including REU programs and summer camps for K-12
outreach. The senior personnel of this project also participate in the
Robotic Systems Challenge and the Women in Science and Engineering
program.